Mathematical Sciences: Weights for Representations of FiniteGroups

This project is concerned with the representation theory of finite groups. The principal investigator will work on establishing the weight conjecture. He will also study the general modular representation theory of Hecke algebras for arbitrary finite groups and will study coefficient systems on some simplicial complexes related to group structure. This project is in the general area of representation theory of finite groups. The principal investigator will examine several problems in this area including the weight conjecture. An affirmative answer to this conjecture would lead to the solution of several long outstanding problems in this area.